Enhancement and Maintenance of the Marine Seismic Processing System SIOSEIS

This award will continue to maintain and enhance SIOSEIS, a software package used for enhancing and manipulating marine seismic reflection and refraction data. The package is used at 25 research centers and on 6 UNOLS ships.